Synthetic Catalysts Based on Reversible Covalent Bond Formation

This project by Anthony Czarnik of Ohio State University is within the Organic Dynamics Program, and will investigate the rate of organic reactions based on proximity effects. Model chemical systems will be designed so that reactants and catalysts will be brought together by stable chemical bonds which may later be broken through known, reversible chemical reactions. This work will lead to increased knowledge about the way molecules recognize one another. Work will be continued on the development of catalytic systems based on reversible covalent bond formation that will mediate synthetic conversions of alpha,beta-unsaturated carbonyl compounds. In this context, work will continue on the Diels-Alder approach to enzyme models and enzyme mimics. Methods to remove the degree of freedom between ligand and functional groups in cycloadducts will be investigated using bridged imidazole-anthracenes and tetraazaanthracene adducts, as well as the adducts with 2,5-bis(TMEDA)furan. The reverse Michael addition reaction will also be explored as a basis for catalytic cycles operating at much lower temperatures than the cycloaddition processes. Metal complexes based on the "proton- sponge" structure (N,N,N'-trimethyl-1,8-diaminonaphthalene) will be evaluated as Michael donors and as part of activated Michael adducts. An analysis of the metal-catalyzed retro Michael reaction is also planned.